Conformational Dynamics of Components of Protein Biosynthesis Systems

The object of this study is the investigation of the conformational dynamics of components of protein biosynthesis systems from bacterial and higher organisms. Specifically, elongation factors from c. coli and from calf brain will be studied both in isolated forms and in complexes with appropriate components from their respective protein biosynthesis systems. In the case of the E. coli protein, the complexes will be the guanine nucleotide bound forms, the heterodimer formed with still another elongation factor, the ternary complex formed with guanine nucleotide and aminoacylated-tRNA and the complex formed with the antibiotic aurodox. The elongation factor from calf brain will also be studied in its complexes with guanine nucleotides and with other elongation factors. The goal of these studies will be to examine the nature and extent of the conformational alterations which occur upon formation of these various biologically important complexes as well as to elucidate hydrodynamic aspects of the complexes. In addition to providing information on these important components of protein biosynthesis systems the proposed studies will also have relevance to related research on other quinine nucleotide binding proteins.